GEM: Three Dimensional Kinetic Instabilities in the Near-Earth Thin Current Sheet

A fundamental problem of magnetospheric physics is to understand the failure of the magnetosphere to make a smooth transition from a state of slow convection and low dissipation to one of fast convection and high dissipation in response to enhanced coupling of solar wind energy into the magnetosphere. A magnetospheric substorm initiates the transition. The precise physical mechanisms that occur at auroral breakup and trigger the substorm have yet to be determined. There is a long established theoretical belief that the triggering mechanism involves the growth of a localized plasma instability in the near-Earth plasma sheet. Plasma simulations in 2-D, however, have not been able to produce such an instability. This proposed effort will initiate a series of 3-D particle and hybrid simulations with the goal to determine if the localised- instability hypothesis is correct. Various instabilities including (drift kink, collisionless tearing, interchange/ballooning, lower- hybrid drift, cross-field streaming, ion Weibel, etc.) will be considered and examined. The large-scale 30D simulations will be implemented on massively-parallel computers using a very efficient General Concurrent Particle-in-Cell algorithm. Only large scale 3- D kinetic simulations of this type can determine the role of various localized plasma instabilities in destabilizing the near- Earth plasma sheet.